The Role of Primary Production and Grazing in the Carbon Budget of the Equatorial Pacific

This research effort will conduct measurements of primary production and grazing on cruises to the equatorial Pacific in 1992. The basic measurement techniques will use the stable isotope 13C to assess total carbon production and the dilution technique to measure grazing by microzooplankton. Measurements will be directed toward quantifying the potential for dissolved organic production by the equatorial upwelling system and providing comparisons for the model simulations.